Assessment, Rehabilitation and Management of Underground Infrastructure Systems through Life-Cycle Costing

9800204 Abraham Investment in civil infrastructure made by public agencies and the private sector involves a major portion of the wealth of the U.S. Most often, owners, designers and contractors have approached the design, construction, maintenance and operation of underground infrastructure on a crisis-based approach. As a result of this, the impact of important considerations such as construction practices, construction duration, life-cycle costs, environmental impacts, safety requirements, etc., are not fully explored. This project will create a framework for a life-cycle model for assisting in the prioritization of scheduling of maintenance and rehabilitation of underground infrastructure. Sanitary sewer systems are selected to test the proof-of-concept, since the maintenance of sewer systems is an increasing priority worldwide. The development of the sewer management framework can be divided into three stages. In the first stage the focus of the research will be on the development of a prototype decision-making framework for concrete sewers. Examples of key decisions include: type of rehabilitation/maintenance strategy adopted, selection of sewer where rehabilitation strategy will be applicable, and frequency of application of rehab/maintenance strategy. This will be accomplished through: 1) analysis of the condition rating methodology (based on cracking, deflection, corrosion and subsidence) used at present to determine the status of sanitary sewers (using historical data from the City of Indianapolis, Department of Capital Asset Management), and 2) deterministic dynamic programming, Markov decision process, and probabilistic dynamic programming will be investigated to determine their feasibility in modeling life- cycle costs. The second stage will include a focused pilot study to test the framework developed in stage 1, to determine the ability of the framework to improve decision-making, when life-cycle costs are considered. The framework can t hen be extended to include the effect of external (such as soil type and depth of cover) and internal factors (such as infiltration and surcharge) on sewer deterioration. In stage three, the impact of other life-cycle costs (e.g., disruption costs, environmental impact costs, and safety costs) will be incorporated into the framework. Two budget goals will be analyzed at this stage: (a) Provision of the best return for funds expended and (b) Optimal allocation of funds for preventive maintenance and rehabilitation. Opportunity costs and other virtual costs (such as planning costs, claims costs arising because the system has to be shutdown) will be considered in future studies. ****